Composite Operations Using On-line Arithmetic for Application-Specific Parallel Architectures: Algorithms, Design, and Experimental Studies

The objective of this research is to formulate, design, and evaluate composite arithmetic algorithms using on-line approach, so that the resulting algorithms are better suited for VLSI and are more adaptable to the requirements of application-specific parallel systems for numeric computations. This research combines theoretical, experimental, and methodological aspects to develop and adapt algorithms or the basic operations and to combine the basic operations into more complex functions. Design modules are being developed in VLSI, which are then incorporated into application-specific systems. The focus is on matrix computations that are pervasive in signal processing applications. On-line arithmetic is characterized by (i) digit-serial operations, (ii) the most-significant-digit-first mode in all operations, (iii) no carry propagation, and (iv) highly modular organization. Previous research of the principal investigators have shown that the on-line approach is very promising. The proposed study relating aspects on algorithm formulation,constraints of VLSI implementation, and computer architecture is essential to demonstrate the cost-effectiveness of such an approach. Support is strongly recommended. Support of two undergraduate students is also recommended under the Research Experience for Undergraduates program. The undergraduate students benefit by experimenting with various models of on-line arithmetic and implementing the designs in VLSI.